Spectral Domain-Decomposition Methods for LES of Turbulence in Complex Geometries

Akhavan 9405085 The object of this study is to develop an advanced parallel spectral domain-decomposition package for large eddy simulation (LES) of turbulence in complex science and engineering applications. In particular, we propose to implement the dynamic two-component subgrid-scale model recently developed at the University of Michigan into the parallel spectral domain decomposition code currently under development at Brown University.